Mathematical Sciences: NSF/CBMS Regional Conference in Math Sciences- Multigrid and Multilevel Adaptive Methods forPartial Differential Equations; June 24-28, 1991; Wash. D.C.

To stimulate interest and activity in mathematical research, the National Science Foundation each year supports a number of NSF-CBMS Regional Research Conferences in the Mathematical Sciences. Each five-day conference features a distinguished lecturer who delivers ten lectures on a topic of important current research in one sharply focused area of the mathematical sciences. The lecturer subsequently prepares an expository monograph based upon these lectures, which is normally published by the American Mathematical Society or the Society for Industrial and Applied Mathematics, or jointly by the American Statistical Association and the Institute of Mathematical Statistics. Certain features differentiate these conferences from typical research conferences. These are: (1) Focus on a single important and timely area of research by a leading practitioner, (2) Continued effect and local stimulation through regional emphasis, (3) Panel review for quality, breadth, and timeliness, and (4) Published monographs for a wider audience. This project will support an NSF-CBMS Regional Research Conference in the Mathematical Sciences on Multigrid and Multilevel Adaptive Methods for Partial Differential Equations to be held June 24-28, 1991 at George Washington University. Professor Stephen McCormick of the University of Colorado at Denver will be the principal lecturer.